Mathematical Sciences: REU: Matrix Analysis and Applications

A research program focusing on mathematical problems in matrix theory will be supported through this Research Experiences for Undergraduates award. Eight students will work under the supervision of seven faculty members, using experimental and theoretical methods on a broad range of research topics. An introduction to available sophisticated computing tools for mathematical exploration in matrix analysis: MATLAB, Mathematica, Maple and GAUSS, will be provided, along with access to a new computer laboratory. It is expected that students will present their work at regional meetings of the Mathematical Association of America. Research projects such as the approximation of functions of matrices will be taken up. Here one considers interpolating polynomials of complex functions and how the corresponding functions of matrices approximate one another. Another area of investigation concerns the convergence of products of matrices. For powers of a single matrix, the behavior of the sequence of its powers is well known. When the terms of the product are selected from a finite set of matrices, relatively little is known about convergence. Work will also be done on the relationship of the spectrum of a matrix and its permanent. For example, one would like to know the maximum permanent taken over all matrices with a given spectrum. Other topics include extreme points of nonnegative matrices, matrix equation and sign pattern matrices.